Experimental Particle Physics Research at High Energies

Experimental Particle Physics Research at High Energies
Abstract:
Experimental Particle Physics Research at High Energies
Abstract:

The Standard Model is a remarkably successful theory that describes nearly all observed particle physics data — yet it cannot be the complete picture, since it does not offer a complete explanation for the matter composition and the gravitational effects observed in our universe. Real data from particle colliders and detectors are needed to further examine the Standard Model and to learn what structure might lie beyond it. The Compact Muon Solenoid (CMS) is a powerful detector used to examine the world’s highest energy proton collisions, which are produced by the Large Hadron Collider (LHC) at CERN. The CMS collaboration uses these data to understand fundamental physics by mimicking conditions which are similar to the early universe. The Barberis-Orimoto-Wood group at Northeastern University is analyzing the accumulated data to look for clues for a more complete description of the laws and fundamental structure of matter. The group has developed deep expertise in particular models and observables that can be used to evaluate different hypotheses for what might extend beyond the Standard Model. At the same time, they are working on upgrading the CMS instrument for operation at the High Luminosity LHC (HL-LHC). The science and the community will benefit for decades from the advanced capabilities of this device. The detector upgrade also provides special opportunities for hands-on training of the future scientific and technical workforce.

With the recent completion of Run 3 at the LHC the group will have access to the full CMS data with approximately double the statistical power of the previous runs. This will increase the precision of measurements and extend searches to rarer processes. The group pursues compelling physics topics: leptoquarks (LQs), pair production of Higgs bosons and of electroweak (EW) gauge bosons, and searches for additional Higgs bosons. LQs are hypothetical particles that can explain some of the outstanding mysteries in the generational structure of the standard model. The group has an outstanding track record of LQ studies and will extend the search for pair-production and single production of LQs in intergenerational models to the multi-TeV scale. The search for di-Higgs production is a cornerstone of the LHC program because it can yield information about the Higgs potential, EW phase transition, and the stability of the vacuum. The group studies several di-Higgs decay modes and will pursue searches for new resonances decaying to di-Higgs as well as search for the modification of the couplings in non-resonant di-Higgs production. Although standard model di-Higgs production is not expected to be visible before the HL-LHC, these modes are sensitive to new physics, and the study of non-resonant production will prepare us to study the trilinear and quartic terms of the Higgs potential in HL-LHC. Pair production of other gauge bosons is rare, but already observable. The group concentrates on production of WZ and ZZ. In WZ, the W decays to tau leptons are particularly interesting because they have not yet been observed in this production mode and because new physics models predict unique enhancements for third generation particles. Meanwhile, the upgrade of the CMS detector enables a more powerful instrument for the large dataset that will be collected in HL-LHC. The group has for many years pursued the upgrade of parts of the CMS detector for the HL-LHC: the muon detection system, the “trigger” system used to flag events with muons, the electromagnetic calorimeter that detects and measures photons and electrons, and a brand new detector that will measure precise timing for charged particles. Now with the LHC shutting down for three years, the group will at last be able to install and test these upgraded systems. The group has provided essential leadership and effort to realize the upgrades, and many group members will be involved first-hand in the integration and commissioning of these upgrades. As a natural complement to its research efforts, the Barberis-Orimoto-Wood group makes a deliberate effort to contribute to the development of a strong STEM work force by enhancing opportunities for more people, especially young people, to pursue meaningful careers in science and related quantitative fields. Much of the groups effort focuses on high school students, through the Boston Area QuarkNet Center and the Bridge to Science program at Northeastern university. For undergraduate students, the group provides unparallelled real-world research experiences through Northeastern university’s signature co-op program.